SGER: Development of Scanning Electron Microscope Techniquesto Ascertain the Microscopic Mixing Characteristics of Atmospheric Aerosols

Most chemical analyses of atmospheric particles are carried out on bulk samples. However, particle by particle variations in composition strongly influence atmospheric transformations, visibility degradation, and the fate of particulate pollutants. In addition, knowledge of the microscopic mixing characteristics of combustion products is essential to understanding particle formation in combustion. With the development of computer- controlled scanning and x-ray detectors which measure elements as light as carbon, the scanning electron microscope (SEM) has a great deal of promise for this application. However, more development work is needed to assure that the elemental analysis accurately reflects the composition of the aerosol. The goal of this research is to obtain accurate single particle analyses of atmospheric aerosols with an electron microscope. Monodisperse aerosols of known composition will be used to 1) conduct studies of electron beam damage to major components of atmospheric aerosols, 2) test methods to reduce beam damage, and 3) validate existing quantitation methods. The potential of the SEM for measuring carbon will also be assessed. The techniques developed will be used in the future to identify the elemental characteristics determining the uptake of water by aerosols.